Ribosome Structure and Function

The ribosome is a ribonucleoprotein assembly made up of two structurally and functionally distinct subunits. In Escherichia coli it includes three RNA molecules and over fifty different proteins. This project involves determination of how the RNA molecules are folded within each subunit and the placement of specific proteins on the subunit surface. Each question will be studied by electron microscopy of specific antibody-subunit complexes. Oligodeoxynucleotides that complement specific sequences of ribosomal RNA will be chemically synthesized and modified at one or both ends to incorporate antibody-recognizable non-complementary markers: dinitrophenol at the 5'-end, and isopentenyladenosine at the 3'-terminus. m Conditions for optimal binding will be determined, and target site specificity will be verified. Marker-specific antibodies will be allowed to interact with oligonucleotide-subunit complexes and freed of non-specific IgG by HPLC. Electron microscopy of antibody-oligonucleotide- subunit complexes will permit visualization of the site of oligonucleotide binding and hence the localization (and perhaps orientation) of the complementary RNA segment within the subunit. Ribosomal proteins will be localized in a collaboration involving Dr. R. R. Traut. Monoclonal antibodies directed against defined epitopes of ribosomal proteins will be used to localize the protein epitopes on the subunit surface. Interference caused by oligonucleotide or antibodies in protein synthesis assays will used to relate structural studies to ribosome function.